Pikuni Integration of Technology Into Academics Phase II

Goal 1 Increase enrollment in STEM classes by establishing a summer math/science institute for
high school juniors and seniors with research interns assisting in the planning, promotion, and
implementation of the institute. These participants will serve as feeders to the internship program
and to the STEM courses. Further, the interns will work with high school students in the lab setting
monthly and become mentors to these students. A Career Day and recruiting of non-traditional
students who are working in STEM fields will also assist.
Goal 2 Increase retention of Native American graduates from STEM fields through implementation
of a series of STEM lectures with lecturers from four-year colleges as well as visits to BCC of
former BCC STEM graduates to expose their successes. Key to the success of this goal will be
follow-up visits to Montana colleges to trace BCC STEM graduates.
Goal 3 Strengthen STEM research infrastructures will involve developing partnerships with
institutions/organizations which can do scientific testing for our research when the college lacks the
equipment and moving beyond wind energy to alternative energies. The grant will encourage the
broadening of research at BCC by BCC STEM faculty becoming more involved in the research
activities. This will be accomplished by assisting them in developing a research component to their
courses and/or a research capstone course.
Goal 4 Improve technology by offering a GPS-GIS summer workshop for BCC students, build a
mini math lab for the math department and involved in data collection for both TSET and RSI.